Workshop on Pseudo-Triangulations to be held Jan. 26 - Feb. 2, 2001 at McGill University, Barbados, West Indies

This project is to support a problem-posing and problem-
solving workshop on an emerging new topic in Computational
Geometry, with applications in Graphics, Robotics, and
Mobile Computing. Funding will support a small
international group of participants, including students and
post-docs, to get together and draft a list of the main
questions to be answered about this relatively new data
structure, and to work on solving some of them.